PYI: Motion Planning

This Presidential Young Investigator award recognizes the outstanding productivity and potential of Dr. Canny as a researcher and educator in computer vision and robotics. While a graduate student, he published influential work in edge detection and in collision avoidance for robot motion planning, solving long-standing problems by new techniques. The latter work was recognized with an ACM Doctoral Dissertation Award for 1987. Dr. Canny is continuing his excellent work in robot motion planning and computational algebra and geometry, including research in compliant motion planning and grasp planning. He is also supervising four Ph.D. students and teaching graduate courses in robotics and computational mathematics.